TQO Computational Enterprise Modeling: Analysis Tools to Enhance Quality in Organizations

This project builds upon earlier research also funded by the National Science Foundation, and addresses the need of managers to plan, design, and re-engineer work processes to ensure high quality performance and results. The goal of the research is to shift the focus of quality management upstream to the design, execution, measurement, and control of quality-oriented work processes aimed at delivery of high quality products. In earlier work, researchers from Stanford University developed and validated The Virtual Design Team (VDT), a computational analysis tool that can simulate the operation of engineering work processes within alternative project organizational structures, supported by different information technologies. Now, in this project, the Stanford research team will work with partners from The Boeing Company to extend and generalize the VDT tool so that it can be used simulate work processes at Boeing and predict the quality of resulting work processes. The extension involves adding iterative design/build/test/refine loops to the capability of the VDT software. If successful, this research will provide a new capability for Boeing to analyze its work processes that have been modeled previously.